Collaborative Research in Learning Technologies: Conceptualization of a Flagship Center for Collaborative Research in Learning & Human Language Technologies

9616991 Cole, Ronald Whitney, Gail Oregon Graduate Institute of Science & Technology Collaborative Research on Learning Technologies: Conceptualization of a Flagship Center for Collaborative Research in Learning and Human Language Technologies The Oregon Graduate Institute has been awarded funding in the amount of $50,000 for a period of 06 months to plan a NSF Flagship Center for Collaborative Research on Learning and Human Language Technologies. The mission of the proposed Center is to support basic research on the use of human language technology to create better tools and strategies for learning. Areas of research and tool development will include using speech as an input modality in computer assisted learning; speech training for second language learning or articulation training; speech as a primary input modality for physically challenged individuals; and speech as a context for learning about other things.